Doctoral Dissertation Research: Language and Community Change in Harlem

Critical to the study of languages and how they change are longitudinal studies, which allow for the examination of communities over time. This study focuses on African American English as spoken in Harlem, New York City. African American English refers to a nonstandard variety of English characteristically spoken by African Americans in the United States. This term covers a wide range of ways of speaking, from very casual to very formal, as spoken by a range of individuals from different age groups, ethnicities and socioeconomic backgrounds. Today, Harlem is undergoing rapid change due to gentrification. This has resulted in a decrease of its black majority as new residents come in. The aim of this research is to examine the ways in which the language of Harlem's African American residents has changed since the 1960s, in light of the significant changes the neighborhood itself has undergone. That is, what is happening to African American English, now that Harlem is no longer home to just African Americans?

This study will observe and record roughly seventy-two residents of Harlem, from a range of age groups and socioeconomic classes. Social and linguistic data will be collected through sociolinguistic interviews with individuals and groups and ethnographic observations, which will then be compared to previous linguistic research conducted in Harlem in the 1960s. The current research promises to build a more comprehensive picture of language contact and change, and will shed light on issues pertaining to mediums for language transmission. This study also has implications for education, especially in urban centers, where black students continue to struggle in schools throughout the United States. A better understanding of African American English and the social circumstances under which it is used can help educators to differentiate between dialectal differences and actual learning deficiencies, and thus provide the necessary support for students.